Modern Laboratory Courses in Biochemistry and Immunology

This project is providing biology majors, including those preparing to be teachers, with sophisticated training in protein purification, enzymology, monoclonal antibody development, cellular activation strategies, and mammalian cell culture techniques. The equipment facilitates major improvements in both Biochemistry and Immunology. The affected courses utilize a research approach. Students design experiments, generate, record, analyze, and disseminate scientific data from their own research. Other undergraduate courses benefiting from these improvements include: microbiology, cell biology, molecular biology, nutritional biochemistry, analytical chemistry, environmental chemistry, and instrumental analysis. The equipment also helps to enhance undergraduate research projects and a science camp for talented high school students.